Understanding Birds

The Cornell Lab of Ornithology (CLO) will develop "Understanding Birds", a suite of exhibits and related programming in the new environmental science center to be opened in Sapsucker Woods in 2002. The new building will house the Lab's research, education, and outreach operations, including the Library of Natural Sounds, a new Library of Nature Videos, and Cornell's systematic collection of vertebrates. The building also will include a multi-media-based interactive Visitors Center providing both real and virtual learning activities for visitors of all ages, backgrounds and skill levels. Plans for replication of the exhibits will be made available broadly to museums, nature centers and other organizations.